Compiler Support for Morton-order Matrices

Two problems that constrain big computations
appear to relax in the face of a different
representation for matrices and their constituent blocks.
Morton (or Z) order represents the elements
of a matrix in computer memory consecutively
by larger and larger blocks. This locality contrasts
with row-major (or column-major) order,
which stores only elements in the same row
(column) close to one another.

This project explores compilers for Morton order as
the default representation for arrays in higher-level programming
languages.
It develops techniques to recompile existing programs
to code that uses Morton-order internally
and respects modern memory hierarchies and superscalar processors.
These will interface cleanly to future programs that
use Ahnentafel indices, a generalization of Morton order,
to control divide-and-conquer algorithms to descend
blocks of a matrix recursively.
So, it also supports the design of parallel algorithms
that decompose a computation into disjoint, memory-local processes.

Morton order, and block algorithms that use it,
implicitly improve access patterns
into hierarchical memory:
from registers, through caches, to RAM, to swapping disk.
That is, Morton order enhances locality of reference
of one process,
while it helps to schedule multiple processes
that don't interfere with each other.